Qualitative Behavior of Turbulent Flows

Kukavica
0604886

This project is concerned with solutions of the
Navier-Stokes equations, which are the principal model for flow
of a viscous incompressible fluid. The investigator addresses
questions regarding regularity, qualitative behavior of solutions
(size, complexity, decay), qualitative description of attractors,
determination of solutions by observables, and minimal scale.
Similar questions are addressed for the Euler equations,
Kuramoto-Sivashinsky equation, and the complex Ginzburg-Landau
equation.

The understanding of dynamics of a fluid flow is important
in many applied fields, such as oceanography, atmospheric
science, aerodynamics, and turbulence theory. The Navier-Stokes
equations are the main model for study of the viscous fluid flow.
The equations have a rich history and have been a subject of
intense study due to their immense challenges and their direct
connections with applications. The investigator studies
regularity questions and qualitative behavior of solutions.
Potential applications include better understanding of small
structures of turbulent flows (vortices, oscillations),
reconstructing dynamics from measurements, and a rigorous
interpretation of numerical simulations of a fluid motion.